Growth and Stability of Metal Films and Small Metal Structures

9312839 Dubson Technical abstract: An experimental and theoretical study will be carried out of the kinetics of surface self-diffusion and mass transport on metal surfaces. The thermal stability of metal films and small metal structures will also be investigated. Variable temperature (4.0-540K) scanning tunneling microscopy (STM) will be used to study the evolution of structures on the surface of noble metals. These structures will include those that are naturally occuring in polycrystalline films as well as lithographically fabricated structures in single-crystal samples. The effect of growth conditions on the critical length csale at which the film morphology changes from a compact island structure to percolation will be probed using electron microscopy. In a related study, a novel submicron resistance probe, called electron beam resistance imaging, will be used in combination with atomic force microscopy (AFM) to identify and characterize the initiation sites of electrical failure in submicron metal lines. Non-technical abstract: Any metal surface which is not flat is in a non-equilibrium state and will attempt to relax toward flatness. The mechanism of this relaxation is often surface diffusion of atoms. This process can affect the lifetime of computer chips or any other lithographically fabricated metal structure. Scanning tunneling microscopy and scanning electron microscopy will be used to study surface diffusion of atoms on metals and the consequent evolution of the structure of metal films and small metal structures. Relevant questions to be asked in this context are: How does a corrugated metal surface decay? How does the decay time depend on the size of the corrugations? How thick should a metal film be do that it has no holes? Will holes develop in such a film when it is heated? ***